ARFMP: Renovation of Physics Research Facilities at University of Arkansas

This Academic Research Facilities Modernization Program (ARFMP) award from the Research Facilities Office provides funds to the University of Arkansas Fayetteville for the renovation and repair of the physics building which houses the research and research training activities of the Department of Physics. This building was constructed in 1951 and has not been renovated since that time. The ARFMP grant of $500,000 and $590,250 provided by the grantee as cost sharing will be used to modernize these research and research training facilities. The project will address the need to improve the current research infrastructure by providing central air conditioning; adequate power lines; and adequate power, water, vibration-free tables, benches, shelves and other essentials; and additional fume hoods. This award contributes to the infrastructure of science by providing an improved environment for the conduct of research and for the training of undergraduate and graduate students at the only institution in the state of Arkansas that offers the doctorate in physics.